Ethics Fellows in Engineering

The Ethics Fellows Pilot Program at the University of New Mexico will be offered in three or four sections of the Engineering curriculum. The one year program will provide data on the expansion to other institutions, including CNM and SIPI, and may also provide insight into issues that are cross-cultural, since UNM is an MSI. The co-teaching experience of the Fellows will be provided with a teaching mentor and a colleague in another department, Philosophy. A seminar will help prepare Fellows and regular meetings will provide follow-up. Faculty mentors are interdisciplinary; evaluation is a critical component.